An Atlas of M33

The objective of this work is to prepare and publish an identification atlas of the galaxy M33, which is one of the two closest galaxies to our own. This atlas will make astronomical research on various objects within the galaxy more efficient, and will be particularly useful in the coming era of very large telescopes. Charts as well as tabular and positional material will be included. The Principal Investigator is a highly regarded expert in this field.